CAREER: Optically-Pumped Nuclear Magnetic Resonance Study of Two-Dimensional Electron Systems in Strong Magnetic Fields

9501925 Barrett The proposed research utilizes a new experimental technique, "Optically Pumped Nuclear Magnetic Resonance", to study the fundamental quantum mechanics of the two-dimensional electron gas (2DEG) in strong magnetic fields. Optical pumping of interband transitions in a quantum-well structure with circularly-polarized laser light incident along the applied magnetic field direction results in non-equilibrium spin polarization of electrons in the well. Nuclei in the materials that form the well, e.g., GaAs, are dynamically polarized via their hyperfine coupling to the electron spins, and their NMR signals monitor the electron spin state in the well. The research objectives are to map out (1) the spin configuration of the many-particle ground state, and (2) the elementary excitations and their energy splitting from the ground state. OPNMR experiments will also search for evidence of occurrence of the Wigner crystal phase. %%% The proposed research will employ a new experimental technique, "Optically Pumped Nuclear Magnetic Resonance" (OPNMR), to study the fundamental quantum mechanics of the two-dimensional electron gas (2DEG) confined in quantum-well nanostructures fabricated from compound semiconductors such as gallium arsenide. Optical pumping of interband electronic transitions using circularly- polarized laser light applied along the direction of an applied magnetic field results in non-equilibrium polarization of the spins of electrons in the well. Nuclei in the semiconductor material from which the well is fabricated are consequently dynamically polarized through their interactions with the electrons, and their nuclear magnetic resonance (NMR) signals serve to monitor the state of the electron spins in the well. The research objectives are to map out (1) the spin configuration of the collective (many-particle) lowest energy state of the electrons in the well as a function of the number of electrons, and (2) the so-called elementary excita tions of the electronic system and their energy splittings from the lowest energy state. OPNMR experiments will also be used to search for evidence of the so-called electron (Wigner) crystal, an exotic organization of electrons onto a two-dimensional lattice within a heterostructure layer, which is believed to exist under certain experimental conditions. ***